Physical Basis of the lunar Synodic Bias in Rainfall

The lunar synodic effect consist of a systematic tendency for the precipitation at many mid-latitude locations to be most favored to occur a few days after full or new moon. The gravitational tidal forces of the moon and the sun cause this effect. The exact manner in which these force affect atmospheric circulations so as to induce the lunar synodic bias is unknown. This work will examine this classical problem along two complementary thrusts: (1) a statistical analysis of diverse precipitation data to delineate the types of atmospheric circulation patterns most relate to the lunar effect, and (2) a quantitative assessment of the dynamics of tidal and various inertial components of ageostrophic motion in circulations that produce rain. Desirable spin offs of this research are (1) to attract the interest of theoreticians to this neglected but fundamental classical problem in dynamics, and (2) to encourage quantitative investigation into the lunar synodic effect as a means of improving the skill of operational probability-of- precipitation forecasts.